REU: Undergraduate Research Participation in Biochemistry and Cell Biology

This award will provide funds for a Research Experiences for Undergraduate Site in the Department of Biochemistry at the University of Kansas. Projects in biochemistry and cell biology will be directed by full-time faculty members, actively engaged in research and experienced in undergraduate education. Ten students will participate in research that focuses on the molecular and cellular processes of intracellular movement, metabolism, neurotransmission, cell differentiation, vertebrate development, intracellular information transfer, genetic controls, and cancer control. In the laboratory students will gain experience in cell and tissue culture, disc and slab gel electrophoresis, various types of chromatography, preparative centrifugation, UV-visible spectrophotometry, recombinant DNA technology, electron microscopy, and protein purification. Through seminars they will become acquainted with broad areas of biological research. The participants will be active members of a research team and increasingly independent researchers. Participants will be selected by a committee made up of the Project Director and two biological science faculty members of the University. Selection will be based upon the students' academic records in the natural sciences and upon their aptitude and interest in research. Participants will be assigned advisers according to their interests and in consultation with the faculty members involved.